Conference: Support for the 2022 Ecosystem for Collaborative Leadership and Inclusive Innovation in Plasma Science and Engineering (ECLIPSE) Meeting

This award supports the Ecosystem for Collaborative Leadership and Inclusive innovation in Plasma Science and Engineering (ECLIPSE) meeting planned to take place on March 9-11, 2022 at the Sheraton Suites Old Town Alexandria in Alexandria, Virginia. The meeting is intended to bring together the community supported by NSF and Partner Agencies across the breadth of plasma science and engineering. The meeting will provide a unique opportunity for a broad segment of the plasma science and engineering community to exchange scientific results on topics ranging from high-energy plasma astrophysics to solar physics and space weather prediction, to plasma medicine and clean energy applications of low temperature plasmas.

The goals of the ECLIPSE meeting include (1) widening the scientific community’s exposure to the field of plasma science and engineering, (2) educating the community in its theoretical fundamentals and applications and (3) helping members of the plasma science and engineering community network across traditional disciplinary boundaries. The meeting will include invited talks with generous time for questions and answers, a poster session, and a concluding multi-agency roundtable discussion led by co-chairs of the 2020 Decadal Assessment of Plasma Science conducted by the National Academies of Sciences, Engineering, and Medicine. The meeting presentations will be webcast with the opportunity for online viewing and an online discussion forum for members of the community who are not able to participate in person.